Engineering Research Equipment Grant: Purchase of a Oscillating Balance Catalytic Reactor

ABSTRACT CTS-9610315 Gustavo Larsen An oscillating microbalance and peripherals (TEOM 1500 Series of R&P Co., Inc.) will be purchased and utilized to monitor real-time processes in heterogeneous catalysis under operating conditions.